Alaska Native/Rural Education Consortium for Systemic Integration of Indigenous and Western Scientific Knowledge

9554466 Larson The Alaska Federation of Natives and the University of Alaska Fairbanks have established the Alaska Native/Rural Education Consortium (ANREC) to implement recommendations from a seminar series that focused on instruction to Alaska Native students. Working through institutions of higher education, the Alaska Department of Education, and tribal councils, the consortium will undertake a five year initiative to systemically document the indigenous knowledge systems of Alaska Native people and develop pedagogical practices that will integrate indigenous knowledge into the curriculum, and restructure instructional practices to capitalize on Native learning styles, to improve the science and mathematics achievement of students in Alaska Native village schools. The focus of the proposed initiative is on providing an opportunity for the Native people of Alaska to formulate a renewed educational agenda regarding the structure, content and processes that are needed to increase the application of Native and non-Native science, mathematics, engineering and technology (SMET) knowledge to the solution of educational problems in the Arctic environment. The overall project is organized into the following three initiatives: (1) Native Ways of Knowing and Teaching (the preservice component); (2) Culturally aligned Curriculum Adaptations (the curricular component); and (3) Elders and Cultural Camps (the inservice component). These activities will be implemented in the five (5) cultural regions of the State. It is anticipated by the Year 2000, the Alaska Rural Systemic Initiative will involve 48 of the 54 public school districts in the state, impacting 302 schools, with a total of 2925 certified staff serving 31,515 students. In addition to the pedagogical impacts, ANREC plans to establish a Native Sciences Advisory Board, with national membership and reflecting the culturally relevant science and mathematics knowledge held by Native scientists and enginee rs. Although the Board will provide guidance to the content of ANREC's activities, it is hoped that other systemic initiatives or organizations involved with teaching native students will benefit from its existence. ***